Implementing Computer-Integrated Calculus in High Schools

The project is adapting the University of Connecticut computer integrated calculus program to high school calculus courses under the University's High School Cooperative Calculus Program. University of Connecticut faculty and graduate students, and teachers from thirteen Connecticut high schools will work together to rewrite materials, present these materials at summer workshops, and coordinate pilot testing of the materials. Revisions based on the pilot testing will be made, and full scale field testing implemented. Student performance in high school as well as subsequent performance at the University will be carefully tracked.